Clark Atlanta University Summer Science Camp

Clark Atlanta University is sponsoring a four-week Summer Science Camp for forty seventh and eighth grade African-American students each summer for the three year period, 1992-1994. Program participants, selected from elementary and middle schools in Metropolitan Atlanta, enroll in an academic enrichment experience that includes interdisciplinary science, computer applications, mathematics, and communication skills. Instruction emphasizes problem solving and critical thinking while focusing on real life situations. In addition to classroom experiences, participants interact with research scientists in their laboratories and in career awareness seminars and discussion groups. Weekly field trips round out the academic experiences of the program. Follow-up activities during the academic year include workshops each semester for program participants and their parents, an awards program at the end of the school year, and a mentoring program in which participants are matched with undergraduate or graduate student science majors who serve as their mentors.